On isomorphism conjectures for assembly maps in algebraic K-theory

9971319
Goldfarb
Computation of algebraic K-theory of group rings R[G] is a problem
of importance in both algebra and topology. In topology, the K-groups
house many invariants associated to spaces with fundamental group G.
One modern approach is through the study of so-called assembly maps.
They relate the computable homology of the group G to it K-theory. The
isomorphism conjecture asserts that the assembly maps are isomorphisms
in all dimensions when the group has no torsion elements. The
investigator will verify this for many groups that appear in geometry
and geometric group theory. The method is to refine current techniques
whenever they show such maps are injective and to use this refinement
to prove surjectivity. In another direction, the investigator will
develop techniques to handle more groups with combinatorial rather
geometric prescriptions.
One of the primary problems in topology is the classification of
topological manifolds. An n-dimensional manifold is a space that locally
looks like n-dimensional Euclidean space. Examples are spheres, tori,
and other spaces often associated to such useful mathematical objects as
solutions to differential equations. The most feasible approach is to
classify manifolds within large subclasses known as homotopy classes,
classification of such larger classes being the major goal of algebraic
topology. Research of the investigator is directed toward resolution of
the Borel rigidity conjecture, the simplest solution to this classification
problem. The conjecture asserts that a certain natural type of manifold
(technically, a compact manifold with a contractible cover) is unique
within its homotopy class. If true, this rigidity, together with the
effective ways to compare the homotopy classes in most relevant geometric
situations, will result in a practical classification of these important
manifolds.
***